Automorphic Forms and Vertex Algebras

BORCHERDS, 9970611

The object of the proposal is to extend knowledge of automorphic forms
and vertex algebras and the relations between them. The main ideas for
doing this are to investigate automorphic forms on the fake monster
Lie group, and to investigate higher dimensional analogues of vertex
algebras.

Vertex algebras are a way of encoding some of the
calculations that physicists do with Feynman diagrams in string
theory. They are often very symmetric; for example, there is one whose
symmetries form the "monster simple group" and which can be used to
explain the so-called moonshine conjectures. An automorphic form is a
special sort of function which is unusually symmetric. A typical
example is the "elliptic modular function", which is closely connected
with the vertex algebra of the monster simple group